Inservice Teacher Training in Environmental Education

This project will train K-12 educators in Wisconsin, from August 1, 1992 through July 30, 1995, to incorporate environmental education into all areas of the curriculum. This will be done by having twenty-five environmental educators offer 30 courses per year in locations throughout the state. This program will also initiate a Master's degree in environmental education at the University of Wisconsin at Stevens Point that will provide 50 teachers the opportunity to become leaders in environmental education. There is an approximate cost-share of 15%.